CAREER: Linking Antarctic Cold Desert Groundwater to Thermokarst & Chemical Weathering in Partnership with the Geoscience UAV Academy

Antarctic groundwater drives the regional carbon cycle and can accelerate permafrost thaw shaping Antarctic surface features. However, groundwater extent, flow, and processes on a continent virtually locked in ice are poorly understood. The proposed work investigates the interplay between groundwater, sediment, and ice in Antarctica's cold desert landscape to determine when, where, and why Antarctic groundwater is flowing, and how it may evolve Antarctic frozen deserts from dry and stable to wet and dynamic. Mapping the changing extent of Antarctic near-surface groundwater requires the ability to measure soil moisture rapidly and repeatedly over large areas. The research will capture changes in near-surface groundwater distribution through an unmanned aerial vehicle (UAV) mapping approach. The project integrates a diverse range of sensors with new UAV technologies to provide a higher-resolution and more frequent assessment of Antarctic groundwater extent and composition than can be accomplished using satellite observations alone. To complement the research objectives, the PI will develop a new UAV summer field school, the Geosciences UAV Academy, focused on training undergraduate-level UAV pilots in conducting novel earth sciences research using cutting edge imaging tools. The integration of research and technology will prepare students for careers in UAV-related industries and research. The project will deliver new UAV tools and workflows for soil moisture mapping relevant to arid regions including Antarctica as well as temperate desert and dryland systems and will train student research pilots to tackle next generation airborne challenges.

Water tracks are the basic hydrological unit that currently feeds the rapidly-changing permafrost and wetlands in the Antarctic McMurdo Dry Valleys (MDV). Despite the importance of water tracks in the MDV hydrologic cycle and their influence on biogeochemistry, little is known about how these water tracks control the unique brine processes operating in Antarctic ice-free areas. Both groundwater availability and geochemistry shape Antarctic microbial communities, connecting soil geology and hydrology to carbon cycling and ecosystem functioning. The objectives of this CAREER proposal are to 1) map water tracks to determine the spatial distribution and seasonal magnitude of groundwater impacts on the MDV near-surface environment to determine how near-surface groundwater drives permafrost thaw and enhances chemical weathering and biogeochemical cycling; 2) establish a UAV academy training earth sciences students to answer geoscience questions using drone-based platforms and remote sensing techniques; and 3) provide a formative step in the development of the PI as a teacher-scholar. UAV-borne hyperspectral imaging complemented with field soil sampling will determine the aerial extent and timing of inundation, water level, and water budget of representative water tracks in the MDV. Soil moisture will be measured via near-infrared reflectance spectroscopy while bulk chemistry of soils and groundwater will be analyzed via ion chromatography and soil x-ray fluorescence. Sedimentological and hydrological properties will be determined via analysis of intact core samples. These data will be used to test competing hypotheses regarding the origin of water track solutions and water movement through seasonal wetlands. The work will provide a regional understanding of groundwater sources, shallow groundwater flux, and the influence of regional hydrogeology on solute export to the Southern Ocean and on soil/atmosphere linkages in earth's carbon budget. The UAV school will 1) provide comprehensive instruction at the undergraduate level in both how and why UAVs can advance geoscience research and learning; and 2) provide educational infrastructure for an eventual self-sustaining summer program for undergraduate UAV education.